University of Virginia Center on Rapidly Reconfigurable Mission Critical Wireless Systems

This action adds the University of Virginia as a research site to the existing multi-university Industry/University Cooperative Research Center for Wireless Internet Advanced Technology. The research site will augment the Center's research agenda with resource management tradeoffs in wireless sensor networks, resource management for reconfigurable wireless sensor networks, infrastructure for persistent surveillance of a metropolitan region and vehicle infrastructure integration.